Pulsed Field DNA Sequencing

We plan to achieve these goals by applying the pulsed field technique to DNA sequencing by developing an instrument and switching conditions that will extend the capability of current DNA sequencing apparatuses. This project will increase the throughput of current DNA sequencing technology significantly and will benefit all areas of research which use molecular approaches. This is a proposal to develop a 20,000 volt computer controlled switching system for application in the pulsed field technique to DNA sequencing by electrophoresis. Optimum field inversion condition will be determined for separating single stranded DNA as large as 2 kilobases. The effect of parameters such as voltage gradients, buffer, temperature, switch times, switching regimens, and composition and formulation of gel matrix on the resolution of large DNA fragments will be studied. The goal is to extend the amount of readable sequences from a DNA sequencing gel.